Kinetics and Mechanisms: Oxidation of Some Selected Sulfur Compounds of Physiological and Environmental Importance

This grant by the Inorganic, Bioinorganic and Organometallic Chemistry Program supports work by Professor Reuben H. Simoyi at West Virginia University to investigate the reaction mechanisms of small organic sulfur compounds. Focus areas are: S-oxygenation, enzymatic and nonenzymatic metabolic activation, radical species, decomposition and autoxidation reactions, and toxicity effects. These areas of investigation relate to important physiological, environmental and industrial processes involving oxidation, C-S bond cleavage and radical intermediates.

Reactions of sulfur compounds will be studied, particularly with regard to their utility in understanding sulfur reactivities in physiological, environmental and industrial processes.